Special Project: Maximizing the Impact of Conference Attendance Travel Grant: National Educational Computing Conference (NECC), Boston, Massachusetts, June 1994

9412782 Lewis This award will help support travel to the 1994 National Educational Computer Conference for forty computer Science faculty from minority institutions. Participants shall submit a brief proposal outlining their goals at the NECC. Sessions at the conference (birds of a feather, introduction) will be arranged and all attendees will submit a report after the NECC. ***